Partnership for Excellence: A Model Program for Professional Development of Middle and Secondary School Mathematics Teachers

This four year project will provide 685 middle school and high school mathematics teachers in four counties in South Carolina with seminars by nationally known speakers, inservice workshops, and academic year short courses. In addition, a three year series of intensive five week summer institutes will be offered for 48 leader teachers. The seminar series and workshops are designed to build support among the teachers and in the community for excellence in mathematics and to enhance administrative awareness and support for the efforts. The project is designed to determine effective strategies for developing teacher understanding mathematics, teacher and student abilities to communicate mathematics, and to involve students in the discovery of mathematics. Course materials will be developed to aid in implementation of exemplary classroom teaching practices.